20th Texas Symposium on Relativistic Astrophysics

AST- 0089606
Wheeler

The 20th Texas Symposium on Relativistic Astrophysics and Cosmology will be held in Austin, Texas on December 10-15, 2000. The Texas Symposium has gained the reputation as the major international meeting on topics in relativistic astrophysics, including the physics of compact objects, high energy cosmic rays, active galactic nuclei, the early universe, and observational cosmology. The meetings are held in alternate years and attract a large audience of theorists and experimenters working in astrophysics and related interdisciplinary areas, including particle and nuclear physics. The symposium is sponsored by the Extragalactic Astronomy and Cosmology program at the National Science Foundation, the National Aeronautics and Space Administration, and the U.S. Department of Energy.

***